Mathematical Sciences: Problems in Operator Theory

Professor Hadwin will conduct research on the theory of operators on Hilbert space. His investigation will include work on generalizations of the Bishop-Stone-Weierstrass theorem for subalgebras of a C* or W* algebra, a study of the notion of reflexivity for operators and operator algebras, and of invariant operator ranges, among other topics. Hilbert space operators are essentially infinite matrices of complex numbers. These operators have applications in every area of applied science as well as in pure mathematics. This type of research is an attempt to classify certain important categories of such objects.